First Arkansas-Oklahoma workshop in topology and geometry

he first Arkansas-Oklahoma workshop in topology and geometry will be
held at the University of Arkansas May 18-20, 2005. The purpose of
the conference is to bring together researcher from the region as well
as researcher whose work is directly relevant to researchers in the
area, in the fields of 3-manifolds (hyperbolic 3-manifolds, Dehn
surgery, Heegaard splittings, efficient triangulations) and related
subjects (2 and 3 dimensional hyperbolic geometry and geometric group
theory).

In more general terms, topology is the branch of mathematics that,
much like geometry, studies shapes. In recent years much progress has
been made in understanding 3 and 4 dimensional topology. Although
topology ignores some of the basic terms of geometry (such as length
area or volume) much of recent progress shows very deep connection
between topology and geometry, especially hyperbolic geometry. Our
goal in this conference is bringing together people from closely
related (yet distinct) fields in order to update each other on recent
developments and establish future collaboration.